Parallel Algorithms for Distributed Memory Machines

Professor Livingston will investigate topics concerning parallel computation. Graph embeddings will be studied in the context of simulating one parallel computer on another with a different interconnection scheme. Particular attention will be directed to hypercube architectures. Fault tolerant allocation schemes will be studied along with parallel approximation algorithms.